Towards a Customizable Web Infrastructure

Abstract:

With the advent of the World Wide Web, there has been a fundamental
shift in the way information is exchanged among systems connected to
the Internet. There has been significant research in developing
techniques for eliminating performance bottlenecks arising due to the
lack of sufficient CPU, disk, and network bandwidths. While this
research has led to greater understanding about building a Web
middleware, it is not clear how a Web middleware can provide services
that can be customized to suit the needs of end users.

This research project aims to investigate two key ideas - support for
differentiated level of services and extensibility of the Web
components - to make a Web middleware more responsive and adaptive.
The research will first develop components that can control and
regulate allocation of resources to different requests. The research
here encompasses development of a quality of service (QoS) model with
respect to services and resources provided by the components,
exploration of QoS architectures, extension of the QoS model over a
wide area network, and investigation of a QoS model for web
caching. The project will then develop components whose behavior
can be customized to suit user preferences, Web object characteristics
and operating conditions.